Evaluating Non-Photorealistic Rendering

ABSTRACT
0227337
Douglas M. DeCarlo
Rutgers U, New Brunswick

We propose to show that non-photorealistic renderings which exhibit meaningful abstraction
are easily understood. Abstract images are designed to make meaningful structure clear. We have
worked on the interactive transformation of photographs into versions which manifest meaningful
abstraction by drawing on eye movement data [DeCarlo & Santella SIGGRAPH 2002, Santella &
DeCarlo NPAR 2002]. Over the next year, we intend to carry out psychophysical experiments that
could both validate our interactive technique, and provide new ways of learning more about human
vision eye movements, in particular.
This is high-risk research. Non-photorealistic rendering (NPR) is an established field, but has
never been evaluated. Psychophysical methods are typically applied to simple patterns (i.e. dots
and blobs). However, our method already involves a close link between NPR and perception and
psychophysics, and our lab maintains close connections with psychophysicists including Eileen
Kowler and Thomas Papathomas (both are, like us, affiliated with the Rutgers Center for Cognitive
Science). Many simple conjectures and experiments can be stated naturally in our framework; we
believe we can obtain compelling results.